GEM: A Theoretical Study of Time-Dependent Magnetosphere- Ionosphere Coupling

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. Although previous attempts have been made to consider the static mapping of magnetopause processes to the ionosphere is comparable to the evolution time of magnetopause processes suggests that the dynamics of coupling is important. This grant is to investigate these effects by means of 3D models which makes use of alfven waves.